Large-Scale Computation for Seismic Applications

This project is concerned with the research and development of the large-scale modeling and computational problems associated with seismic applications. A research team of geophysicists, physicists, engineers, mathematicians and computational scientists will address this complex application area. The research will emphasize development and analysis of efficient numerical algorithms and codes for the extremely large-scale problems arising in both forward and inverse seismic modeling.